Mathematical Sciences: Isoperimetric Inequalities

The principal investigator will continue his research on the quantitative aspects of geometric convexity. In particular he will study the Brunn-Minkowski theory of mixed volumes which is at the core of quantitative convexity. This award will support research in the general area of integral geometry. The geometry of a set may often be analyzed and described by a decomposition of the set into slices. The geometry of the slices is often fairly simple and easy to describe. The main difficulty in the analysis is usually the reconstruction of the underlying geometric features of the entire set from the geometry of the slices. One well known application of this area of mathematics is the CAT scan.